Determination of Nitride Semiconductor Parameters Using Light-Induced Transient Gratings

We propose experimental and theoretical investigations of light generated
electrons and holes in GaN-based ternary and quaternary materials and
devices, including compounds with band gap in UV range.

We will use Light-Induced Transient Gratings (LITG) system, which exploits
nondestructive techniques including the quasi-steady-state and time-resolved
photoluminescence spectroscopy in the temperature range from 8 K to 600 K
under laser excitation at different wavelengths.

Our studies will include studies of luminescence at different temperatures,
excitation intensities and wavelengths, time-resolved luminescence,
investigations of stimulated emission, and LITG measurements. This will
allow us to determine carrier densities, lifetimes, diffusion coefficients,
and surface recombination rates (mapping large area wafers) throughout the
visible range into UV.

Comparison of results obtained by the new technique based on LITG with the
results of the conventional luminescence spectroscopy will provide a new
insight into the problems, which are of the primary importance for
exploitation of the wide-band-gap nitrides in light emitting and detecting
devices.

Physics of nitride-based wide band gap semiconductors is dramatically
different in many key areas from that of more conventional semiconductors,
such as silicon or GaAs. This is linked to a different (and more complex)
symmetry that allows for spontaneous polarization. Determining basic
semiconductor parameters for nitrides and relating them to the materials
growth and fabrication process, where appropriate, is crucial for developing
new wide band semiconductor science and for supporting industry with
applications ranging from solid state lighting to ultra high power radars,
from water purification to biological hazard detection.